Purchase of an X-ray Diffractometer

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

With this award from the Chemistry Research Instrumentation and Facilities Multiuser Program (CRIF:MU), Professor R. David Britt and colleagues Alan L. Balch, Susan M. Kauzlarich, Mark J. Kurth, and Philip P. Power from the University of California-Davis will acquire an X-ray diffractometer with a low temperature device. This instrument will support research and education in areas such as the study of fullerenes, Zintl ions, metal-to-metal bonded species, inorganic and organometallic compounds, porphyrin related devices, and combinatorial medicinal chemistry.

An X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and provides accurate information about the spatial arrangement of a molecule relative to neighboring molecules. The studies described here will impact a number of areas, including chemistry, materials chemistry and biochemistry. This instrument will be an integral part of teaching as well as research.